I/UCRC: Planning Proposal for Joining USF WAMI Group to Connection One Center

This action provides funding for a planning grant for the University of South Florida to become a research site to the Industry/University Cooperative Research Center for Wireless Communications Circuits and Systems. This research site will be part of the larger Center, which has been established and is currently supported by NSF. The site will complement the Center's research agenda with projects that address the development of new RF and analog circuits, data converters, power management IC's, low power transceiver architectures, communication protocols, algorithms, and embedded system issues for integration of hardware and software systems. The research developed in the site along with the Center will have a significant impact on several industries in telecommunications.